Collaborative Research: Geology and U-Pb Geochronology of West Laurentia Piercing Points: Database for Rodinia Restorations and Cordilleran Miogeocline Evolution

0107088 Chamberlain
0107024 Sears
0107107 Doughty
Upon the breakup of the supercontinent Rodinia, several Precambrian lithotectonic assemblages were truncated along the western margin of Laurentia, but present data are too sparse to unambiguously identify the matching continental blocks, and the Siberian platform, Antarctica and Australia are possible matches. This project is aimed at strengthening the geochronologic, petrographic and structural data for selected sites in northwest US in order to narrow the possible matches. Results, combined with existing and new similar data from other continental blocks are expected to clarify the nature of Rodinia and the subsequent evolution of the fragments of Rodinia after continental breakup.